CSEDI Collaborative Research: 3D Variations in Temperature and Composition in the Upper Mantle from Seismic and Mineral Physics Data

EAR-0001955
Karato

In this collaborative project, the investigators aim at making progress on how to resolve lateral variations in water content between oceans and continents in the upper mantle, an issue of importance for our understanding of evolution and dynamics of the continental lithosphere. To this effect, they will combine seismological and mineral physics tools. On the mineral physics side, they will work on finding a suitable parameterization through which the effect of water on seismic velocity and attenuation is properly accounted for. On the seismology side, they will test possible parameterizations provided by the mineral physics group on a global seismic waveform dataset, which will be assembled during the course of this project and corrected for crustal effects, as compiled from the literature.